Undergraduate Faculty Enrichment in Computer Networks

This project focuses on a 1-week summer follow-up workshop on UG faculty enhancement in the area of computer networks. Twenty computer science and mathematics faculty from small colleges/universities, who participated in a 2-week workshop at MSU during the summer of 1994, will be invited back to MSU during the 1996 summer, for additional training and experiences. The proposed 5-day follow-up will involve: sessions for assembling and fine- tuning courseware materials (especially laboratory assignments), sessions for sharing experiences relative teaching computer networks, intensive laboratory training on using software packages designed to enhance teaching computer networks. The courseware material will be placed on the WWW for easy access by both participants, and the CS community. Experts in computer networks will be available during the workshop to assist and talk with participants. As a follow-up of the proposed project, a quarterly newsletter will be available to participants via the WWW. Some of the participants will attend the SIGCSE conference to report on their evaluations and "lessons learned".